NSF Convergence Accelerator–Track D: AI-Grid: AI-Enabled, Provably Resilient, Programmable Networked Microgrids

Coordinated networked microgrids (NMs) promise to significantly enhance power grid reliability. Three main challenges prevent their wide adoption: 1) Lack of understanding of NM dynamics; 2) Big data but limited/unscalable analytics; 3) Cyber-infrastructure bottlenecks.

This project aims to develop AI-Grid: AI-enabled, provably resilient NMs. Key innovations are a programmable platform integrating reliable modeling under uncertainty, reachability analysis, formal control, high-assurance software architectures, and cybersecurity technologies to enable scalable, autonomic, and ultra-resilient microgrids and NMs.